Amygdaloid Contributions to Conditioned Arousal

This research is designed to determine if the amygdala, a brain structure located deep wihtin the cerebral hemisphere, contributes to the establishment of an increased state of arousal (i.e. non-specific attention), particularly during the presence of meaningful environmental stimuli. The effects of manipulations of the amygdala on these measures of arousal will be assessed, as will the effects of such manipulations on learning and on the processing of sensory information. The results should yield new and important information concerning the brain circuits which enhance the processing of sensory information and which contribute to the most optimal conditions for learning.